Organization of SGER Mini-briefing

A one-day briefing meeting on "Hurricane Hugo Small Grants for Expedited Research (SGER)" will take place on the first week in June, 1991, in Washington, D.C. Eight presentations will be made by SGER recipients about their findings, to government officials, researchers, policy makers, businessmen and others. A short summary of these presentations and the discussions will be prepared and disseminated to interested parties.